Structural Analysis of Methane Monooxygenase

The goal of this project is a determination of the three- dimensional structure of the hydroxylase component of the enzyme methane monooxygenase (MMO, EC 1.14.13.25). MMO catalyzes the conversion of methane into methanol. High quality crystals of MMO hydroxylase which diffract to 2 A resolution have been obtained. The crystal structure will be solved using multiple isomorphous replacement techniques. The resulting model will be refined used XPLOR and PROFFT to maximize the agreement with the observed diffraction data. The refined structure will be analyzed in light of continuing spectroscopic and kinetic analyses by our collaborator, Dr. John Lipscomb, to provide a framework for understanding how this enzyme functions. %%% Dr. Ohlendorf proposes to determine the structure of the catalytic portion of methane monoxygnease (MMO) to understand to better understand how it works. There are several reasons why this enzyme is being studied. One is that MMO plays a key ecological role in recapturing of billions of tons of the greenhouse gas, methane, into biomass. If this enzyme suddenly disappeared from the face of the earth, all that methane would be released into the atmosphere. Second, the reaction catalyzed by MMO is important in the production of clean burning fuels. An understanding of how MMO functions could assist in the design of improved catalysts for this process. Third, MMO produces an extremely reactive species that is capable of inserting an oxygen into virtually any C-H bond. The ability to control and modulate this activity has tremendous potential in developing new processes for the synthesis and breakdown of difficult molecules.